Pulsational Properties of Type II Cepheid Variable Stars

Schmidt, Edward
"Pulsational Properties of Type II Cepheid Variable Stars"
AST-0097353

Unlike their Type I counterparts, Type II Cepheid variable stars, while also highly evolved, are low mass stars left over from the early stages of the formation of the Milky Way Galaxy. They are important for the study of the history of the Milky Way, for studies of pulsational instabilities in stars and for understanding the evolution of the older populations of stars in the Milky Way. But there are no clear criteria for assigning stars to this class and the main objective in this award is to establish these by gathering together photometric and spectroscopic data for a sample of at least 50 likely Type II Cepheids. Following this initial work, a second stage of the project will enable the masses of the stars to be determined from theory. The masses are important for studying the general evolution of the old stellar populations.
***